Workshop on Future Support and Responsibilities of the Los Angeles Strong Motion Network; and Modern Data Digitization,Processing and Dissemination by a Personal Computer

This action is to support the basic maintenance of the Los Angeles Basin Strong Motion Accelerograph Network. This network was established in 1979/80 to record the strong ground shaking in the Los Angeles Basin resulting from large earthquakes. The goal is to provide information that is fundamental to earthquake engineering and to earthquake hazard mitigation. Very little earthquake activity occurred in the area covered by the network during the period from 1980 to 1986. Since then, the Palm Springs, Oceanside, Whittier Narrows, and Pasadena earthquakes have been recorded. Even though these were not major earthquakes, outstanding data on strong ground motions were recorded. A much larger event is expected in the near future, and the Los Angeles Basin Strong Motion Network is strategically located to record this event. Until this or another significant earthquake occurs in the vicinity of the Los Angeles Basin, it is important that the network and its instruments be maintained satisfactorily, and that the network be kept in a state of readiness to record strong ground shaking. That is the purpose for this action.